National NET '94 Conference; April 6-8, 1994; Washington, D.C.

9408523 Heterick National Net '94 is the seventh in a series of annual conferences devoted to the subject of the National Research and Education Network (NREN). NSF support in the amount of $15,000 is provided to partially defray participant costs of the conference to be held in Washington, D. C. on April 6-8, 1994. This conference will bring together policy level representatives from the numerous constituencies which are essential for the design, development, deployment, and operation of a robust, high performance computer network to meet pressing needs for improved research collaboration and productivity in the United States. It is important that the conference have wide participant involvement especially from the academic community in order to provide a forum for presenting and deliberating on the major issues connected with creation of the NREN and its impact on the research and education communities.